Matrix Preconditioning on Optical Linear Algebra Processors

The field of optical computing has seen a gradual evolution. Perhaps its most important applications thus far have been in evaluating various transformations or mappings from one set of numbers into another set which can ideally be related to the former with as much accuracy as desired. Multiplying one set of numbers by another set of numbers and adding the result is a simple example of such a transformation. Optics is advantageous because it can handle a large number of such calculations all in parallel. The problem is that it involves the measurement of light intensity which cannot be done with as much accuracy as one might wish. This leads to the primary disadvantage of using optics. The present proposal deals with a means by which such optical calculations can be increased in accuracy. The technique called preconditioning would be important if it can be done generally.